TOWARDS A SUSTAINABLE MANAGEMENT OF INSECT COLLECTIONS IN THE U.S. THROUGH THE ENTOMOLOGICAL COLLECTIONS MANAGEMENT WORKSHOP

Natural history collections are an archive of Earth's biodiversity, informing our understanding of the planet and ecological interactions that impact society. Recent global initiatives to digitize biological collections have transformed the scope and scale of how these biorepositories contribute to integrative biological research. Interest in collections and their data is increasing, however much of the workforce capacity remains the same. Entomological collections are especially important because insects represent the most diverse and abundant group of animals with over one million known species. Insects are ubiquitous in our everyday lives and an essential part of most ecosystems. They are also important to human health, as the majority of plant pollinators, disease vectors, and agricultural pests are insects. Collections are organized and maintained only through the specialized knowledge and experience of museum personnel, generally passed directly from one generation to the next, as no formal program has existed to do this across the community. This generational knowledge transfer has been especially important in smaller collections with limited staff, which represent ~70% of all U.S. insect collections. Despite their size, these collections are often extremely valuable due to their strong regional holdings. This effort will produce a comprehensive program to provide formal best-practices training, both in-person and online, to collections personnel, as well as providing much-needed networking opportunities for collections workers across career stages and institutions to share their knowledge and experience with the broader collections' community.

This award supports the progressive advancement of the Entomological Collections Management Workshop Series, including virtual participation and material, co-sponsored by the Entomological Collections Network (ECN) and the Systematics, Evolution, and Biodiversity (SysEB) Section of the Entomological Society of America (ESA). The workshops are scheduled to take place annually in summer 2022 to 2024, with hosting rotating between the Yale Peabody Natural History Museum, Cleveland Museum of Natural History, and Arizona State University. The workshop will be developed as a hybrid virtual and in-person event. During the 3-4 day workshop, participants will receive training in entomological collections management covering a wide range of topics, various topics including policies, specimen handling, curation, conservation, and digitization. This project will encourage the participation of collections staff managers and students associated with smaller collections, as they often have with more limited resources for training and collection development. This workshop will also help fund participation by students and early career researchers, the largest and most diverse (in terms of gender, ethnicity, and socio-economic background) segment of the collections management community. The professional development opportunities provided by this workshop will thus lead to a more highly skilled and integrative community of collections management personnel. The virtual components of this workshop will be shared to the broader community through the ECN website, with the results of in-person workshops also presented at the ECN annual meetings.